Hormone Regulated Gene Expression During Spermatogenesis

This is a Research Opportunities for Women Career Advancement Award. The PI will use this money to take a hands-on sabbatical leave to develop molecular genetic and other new techniques.